Workshop on Reserach in Theoretical Computer Science

CCR-9906118
Selman

This award supports a workshop to develop and offer a perspective on research in theoretical computer science. This effort is in part a response to the President's Information Technology Advisory Committee (PITAC) Interim Report to the President. A panel of 15 leading theoreticians in several research areas will convene in Chicago on March 11 and 12. The result of the meeting will be a formal report.